Global Climate Change Studies on Long and Short Time Scales

9314730 Ledley Global Climate Change Studies on Long and Short Time Scales Climate changes on a very wide variety of time and space scales and involves the interaction of all of the components of the climate system. Most modeling studies of the climate system tend to focus on a particular range of time and space scales; however, many of the interdisciplinary climate questions that need to be addressed require an understanding of the mechanisms of climate change on a wider range of time and space scales than would normally be addressed in one study. In this research program the plan is to use a coupled energy balance climate-thermodynamic sea ice-continental ice sheet model to identify the important mechanisms of climate change on a wide range of time scales in order to gain a better understanding of how these mechanisms affect the climate system. The particular questions that will be addressed include: 1) What is the impact of increased greenhouse gases on the cryosphere and hydrologic cycle, of the Earth-atmosphere system, especially with respect to the initiation of ice sheet growth, and what are the mechanisms that produce those changes, for the present and projected increases in greenhouse gases, and for the variations in greenhouse gases on ice age time scales as observed in the geologic record? In particular the PI will address the question of how the cryosphere, both sea ice and continental ice, responds to the changes in radiative forcing and its impact on the hydrologic cycle; and in turn how the resulting changes in the cryosphere affect the climate. 2) How do Milankovitch solar radiation variations affect the hydrologic cycle, and the cryosphere to produce initial ice sheet growth and the large scale glacial/interglacial cycles as observed in the geological record. The PI will specifically examine the role of the hydrologic cycle in producing glacial/interglacial cycles and use this information to gain a better understanding of the role of spatial and temporal variations in the seasonal cycle of solar radiation on producing climate change on all time scales. 3) What is the impact of particulates in and on snow and ice on the global climate system, and how important is the mechanism of inclusion or deposition of the particulates in affecting the climate system? The use of the coupled energy balance climate-thermodynamic sea ice-ice sheet model to address these questions is particularly attractive because of its relative simplicity, while retaining many of the large components of the climate system. This type of model allows a detailed analysis of the response of the climate system to various perturbations, that will include following the effect from initial perturbation, through all of the included feedback processes, to the final climatic effect. Understanding the processes of climate change in this type of detail permits the application of what we learn in one set of experiments to questions of climate change that occur on other time scales, extending our understanding of the climate system and how it changes. ***